The kinetics of growing coral skeletons

Non-technical description
Coral skeletons provide structural support and shelter to coral reefs thus, they are the three-dimensional scaffolds of entire reef communities, including the beautifully colored fish and shellfish and other marine life. Coral skeletons are made of calcium carbonate, a crystalline mineral that grows up to 1000x faster in reefs than we know how to grow in the lab or industry. Researchers have a lot to learn from corals about how, precisely, they form their crystals, and how to grow crystals synthetically for human benefit, from medicinal pills to the food, semiconductor, and aerospace industries, all of which rely on crystals and crystal growth. With the success of this research scientists will learn how to grow crystals much faster in the lab or in industry. Furthermore, during the course of this research, 12 undergraduate students each year will be trained on how to process cutting-edge data, coauthor scientific publications, and interface themselves with new and unknown data and how to learn from nature. This will prepare them to enter the biotechnology pipeline, and be successful their future careers in industry, national laboratories, or academia. These undergraduate students will be selected among all Americans.

Technical description
Researchers propose to grow in the same, constant conditions corals from five different species, selected because their growth rates vary by an astonishing factor of 10, in those conditions. They propose to analyze corals’ fresh, forming skeletons with myriad mapping (MM) and polarization-dependent imaging contrast (PIC) mapping, two methods they developed specifically to study coral skeletons at the nanoscale. MM and PIC mapping will make it possible to explore the kinetics of coral skeleton growth, that is, to study the rate, mechanisms, and factors affecting the formation of aragonite coral skeletons. They will measure and compare many aspects of the kinetics, and will learn which parameters correlate pairwise, thus revealing new, fundamental mechanisms of crystallization. The parameters they will measure are: (1) the macroscopic growth rates of five coral species; (2) the decay constants in space and time of nanoscale precursor mineral phases detected on coral skeleton surfaces; (3) locations in the skeleton (apical and lateral); (4) microcrystal sizes and relative growth rates; (5) misorientation of adjacent microcrystals; (6) misorientation of adjacent nanocrystals. Preliminary data suggest that at least 1 of the 15 possible correlations of parameters exists (1 vs. 6, but the data are incomplete), and 14 more may exist, leading to major fundamental discoveries on crystal formation mechanisms. They plan to train 12 undergraduate students per year in processing data on coral crystallization mechanisms, which will prepare them for their future jobs in biotechnology, in biotech industry, in national laboratories, or in academia. We also plan to share with the general public crystal growth in coral reefs at fairs and open house events.